New Mexico Comprehensive Regional Center for Minorities

The New Mexico Comprehensive Regional Center for Minorities (NM-CRCM), is a statewide program for implementing a K-12 continum of enhanced science and math programs in the schools. The NM-CRCM flagship programs, the Mathematics Engineering Science Achievement (MESA) project, and the Community Academy for Science and Mathematics (CASM), are proven programs that directly address the NSF's CRCM goals and objectives. In addition, these programs include specific operational structures that maximize their potential to be sustained in the schools beyond NM-CRCM support. New Mexico has a number of other effective programs in science and math enhancement that direct collaborators in the NM-CRCM. These programs enrich and are integrated with the NM-CRCM science and math continuum. All collaborations include a true sharing of resources, trained personnel, and funding that ensures mutual benefit and integration. All NM-CRCM collaborators have agreed to the NM-CRCM goals that are identified below. During its prototype year, NM-CRCM has developed a statewide database of science and math progerams, K-16, that is available to students, teachers, and administrators throughout New Mexico. This databse now exists in hardcopy and will be disseminated through partnership with a New Mexico industry. The database will eventually be placed on various computer bulletin boards so that schools or individuals with a modem may access the information. The NM-CRCM will maintain the database, updating the hardcopy annually, and the database on a continual basis. The project intends to bring its programs to at least 80% of the rural school districts representing 35,000 Native American and 40,000 Hispano ore-college students.